Organizing Meeting for Workshop on Cooperation in Basic Research with Former Soviet Weapons Scientists (Washington, DC; February 24-25, 1992)

The Brookings Institution will convene a planning meeting of U.S. and Russian scientists which is intended to lead to a larger workshop, in Russia, involving U.S. basic research scientists and engineers and former Soviet weapons researchers. The objective of these meetings is to identify areas and topics of civilian-oriented basic research in which former Soviet weapons scientists can work in concert with American researchers as well as to identify potential partnerships between specific ex-Soviet and American researchers. Proposals for actual support of such research will subsequently be submitted to the State Department's Special Coordinator on FSU Non-Proliferation Policy and considered for funding either under the International Science Center that has recently been created by the Department of State or conceivably under existing bilateral arrangements, including the NSF's cooperative science programs.